Theoretical Study of Nucleon Structure and Hadronic Interactions

It is now understood that neutrons and protons, the constituents of the atomic
nucleus, are themselves composed of quarks. A major question in nuclear
physics is how this quark substructure is manifested in observables in
nuclear physics. To reveal these quark effects, we concentrate on approximate
symmetries. These are symmetries of nature that are nearly, but not completely,
obeyed. Studying how these symmetries are violated, and by how much, allows us
to examine quark effects in nuclear physics. We focus particularly on charge
symmetry; this would be an exact symmetry if there were no differences between
protons and neutrons. We concentrate on effects of breaking charge
symmetry at high energies, where the quark structure of matter is more evident.
We also propose to study details of the strong interaction, the interaction
that holds the atomic nucleus together. We are currently concentrating on
"exclusive" reactions (scattering reactions where all of the final products
are observed). We are trying to determine the most efficient of two equivalent
ways of describing these reactions. Another area of proposed study is an
examination of effects that occur when particles move in extremely small
two-dimensional systems. It has long been known that particles like atoms and
molecules possess both particle and wave properties. In most cases the "wave"
properties of matter are small, subtle effects. In certain systems, the wave
effects can dominate observed properties. These effects are seen in "nanoscale"
systems (with dimensions roughly those between atoms in a solid) with visible
light, or by using microwaves in systems with dimensions in centimeters. We
carry out numerical simulations in collaboration with a physicist who conducts
experiments on microwave systems.

The broader impacts involve training of scientists in high-tech fields. We
carry out research with undergraduates, grad students and postdocs, who
become expert in complex systems with applications in technology, pure
research, defense, communications and finance. Recent postdocs have included
several women, and this trains new women scientists. The principal
investigator (PI) provides seminars on recent advances in physics for
non-scientists; these talks increase scientific literacy in the general
population. The PI and his students volunteer for a children's science museum
in Bloomington, Indiana. He is currently a participant in a multidisciplinary
study of "Science and American Public Democracy" at the Indiana University
Poynter Center for Ethics and Public Institutions.